A Versatile Mid-Infrared Astronomical Spectrograph Capable of Very High Resolution

Abstract LACY, J. H. AST-9618723 Funds are to be used to complete a mid-infrared (5 mm to 25 mm spectral regime) high resolution (R ~ 150,000) cross- dispersed echelon spectrograph and to demonstrate its capabilities on a telescope. Initially the spectrograph is to be equipped with a 20 x 64 element Si:As focal plane array.